Tests of Strategic Bargaining Models Using Data on Strikes and Wage Settlements

The objective of the research project is to bring recent theories of bargaining to bear on empirical analyses of apparent inefficiencies in the labor market, using data on labor contracts. An understanding of labor contracts is an essential component in analyses of economic policy, particulary with respect to unemployment and inflation. Although about 85% of labor contracts are reached through peaceful negotiations, the strike threat is clearly an important part of the negotiation process. The model developed in this project asserts that strikes occur when the union is uncertain about how much the firm can afford to pay, and so the union starts by demanding a large wage increase, threatening that the firm will have to endure a long strike before the union will reduce its demand. The core of the proposed research is an assessment of whether empirical data on strike durations and wage settlements can be explained as outcomes of this kind of bargaining conflict. One potential application of the results is in evaluating the effectiveness of the mediation services provided by federal and state governments. There are potentially important similarities between strikes and other kinds of economic and political conflict. Inefficient outcomes are apparently observed in international trade, where tariffs and other barriers impede beneficial exchange, and in lawsuits, where failure to reach a settlement leads to expensive trials. There is also a clear connection between labor contracting and exchange in "thin" markets, such as the housing market, where bargaining may frustrate efficient trades. These analogies will not be systematically analyzed in the proposed research project, but they indicate that an understanding of private information bargaining is likely to have applications to many important policy questions.